Collaborative Research: III: Graph-based Vector Databases, from Theory to Practice

In the last several years, machine learning and artificial intelligence have transformed how computers catalog and search for documents, images, videos, and other media. In particular, modern machine learning systems are trained to convert media items to so-called "vector embeddings", which are short lists of numerical values that encode key information about an item. While vector embeddings would not be understandable to a human reader, machine learning systems can extract information like a document's language, topic, or tone from its embedding. For images and other media, embeddings compactly encode information about what objects are in the foreground and background, what properties those objects have (such as color, size, shape, and so on) and much more. Such embeddings have a huge variety of applications across business (such as in web and product search), scientific data management, generative artificial intelligence, and many other areas. However, advances in machine learning have outpaced engineers' ability to efficiently leverage these embeddings. There is a growing demand for reliable and scalable systems, called "vector databases", that store and support efficient search and filtering over vector embeddings. Dozens of open source and commercial vector databases have been developed in recent years, as have extensions to major existing database management systems. The goal of this project is to improve the algorithms at the heart of these systems so that they are faster, more reliable, and require fewer computational resources to deploy. By reducing computational costs, the research will allow vector databases to be used by small businesses, scientists, and other consumers of artificial intelligence who do not have massive cloud compute or hardware budgets. At the same time, the research will guide the design of next-generation vector databases capable of handling the world's largest commercial and scientific datasets.

The project aims to accomplish these goals by studying a relatively new and exciting class of methods that are broadly referred to as "graph-based vector search methods". Graph-based methods serve as the algorithmic backbone of several recent vector database systems, and include well-known algorithms such as HNSW, DiskANN, and NSG. They seemingly have the potential to enable faster and more accurate search over vector embeddings than previously popular techniques like locality-sensitive hashing, inverted-file indices, and cluster trees. However, graph-based methods have a number of well-known limitations. Among other issues, they lack strong performance guarantees and suffer from extremely high indexing costs. Moreover, existing methods do not effectively take advantage of modern hardware like hierarchical memory and parallel instructions, nor do they mesh well with complementary techniques, like vector compression. This proposal addresses these shortcomings and others via a research program that bridges between theory and practice. The investigators will frame and study foundational algorithms and data structure problems, and then leverage algorithmic insights from that work to build faster and more reliable vector databases. Research will center around three primary thrusts: efficient index construction for graph-based search, fast algorithms for query processing with performance guarantees, and memory optimization and integration with vector compression. Work on these thrusts will contribute to a deeper understanding of vector search, including fundamental but under-studied topics like graph-navigability and the effectiveness of local search in graphs. The research will draw connections with other active areas, including sublinear time algorithms, streaming and dynamic graph algorithms, and sketching. Improved understanding will lead to novel algorithmic techniques and design patterns that can be translated into practical vector database systems. The project will also involve extensive experimental evaluation of proposed methods, producing open source code that can be used and built on by other researchers.